Thirtyfirst Southeastern-Atlantic Regional Conference on Differential Equations

This award provides support for the 31st annual meeting of the Southeastern-Atlantic Regional Conferences on Differential Equations (SEARCDE), held October 21-22, 2011 at Georgia State University. The conference financially supports participation by students and recent Ph.D. recipients.

The meeting includes plenary lectures on topics of current research interest and also especially encourages lectures by students and recent Ph.D. recipients. The conference brings together workers in a variety of different areas of research in differential equations, with emphasis on providing opportunities for new researchers to present their work.